Collaborative Proposal: Visual Interfaces for Engineering Innovation

Center for e-Design
Proposal #1127609
Proposal #1127664

This proposal seeks funding for the Center for e-Design sites at the University of Massachusetts and the Virginia Polytechnic Institute and State University. Funding Requests for Fundamental Research are authorized by an NSF approved solicitation, NSF 10-601. The solicitation invites I/UCRCs to submit proposals for support of industry-defined fundamental research.

The design process typically entails generation of numerous design alternatives followed by reduction of these by virtue of application of different criteria. Ongoing application of computing tools to create an entirely electronic process for e-design have been enabling but can have the effect of saturating the process with numerous alternatives. The proposed work seeks to bring together researchers in the psychological theory of innovation, computer science and human computer interaction to transform the innovative process of design from one which is ad hoc to a more systematic search through the space of features. The effort aims to implement the resulting strategies in a semantic framework leveraging the concepts from visual perception, cognition and human computer interfaces that will allow visualization on the part of the designer of the most promising features for each specific design case.

The proposed research has the potential to enable e-design tools to overcome current limitations and improve the process and outcomes of design while at the same time providing insights into the process of human innovation. Both, if successful, could significantly improve design efficiency resulting in cost savings and reduction of time to market. The work is supported by individual industry members of the center and has the potential to extend the portfolio of the center by virtue of the major innovation in e-design tools enabled by integration of cognitive principles. Both inside and outside the center, the impact on design education and execution has the potential for broad impact in the engineering community.